Engineering Research Equipment Grant: Advanced Vision System Components

Advanced computer vision equipment will be used to improve the sensitivity in measuring in-plane displacements on the surface of structural components. Smaller displacement measurements will detect smaller flaws in a structure and will provide more accurate assessment of the parameters which control brittle fracture of structures. The equipment will also be used to measure the micromechanical deformation of grain boundaries in metals leading to a better understanding of the material parameters which control the strength of metals.